Groups, Algorithms and Geometries

DMS-0242983
Kantor, William M.

Abstract

Title: Groups, algorithms and geometry

Algorithmic and asymptotic properties of finite groups will continue
to be studied, including the statistical analysis of random elements
of a finite simple group as well as probabilistic generation. The
emphasis will be on algorithmic questions concerning permutation
groups and matrix groups, and to more general questions concerning
"black box groups". The main focus is the design and analysis of
efficient algorithms to determine the normal structure of a
large-dimensional matrix group given by a small set of generators,
where the algorithms have both fast asymptotic running time and good
practical performance. This should produce a polynomial-time
algorithm for the basic manipulation of arbitrary matrix groups,
assuming that discrete logarithms in suitable fields can be computed
quickly. Recent algorithms devised or proposed for the constructive
recognition of most classes of finite simple groups are a major
ingredient in this plan. The study of polynomial-time, nearly linear
time and parallel (complexity class NC) permutation group algorithms
also will be continued. Additional new practical algorithms will be
obtained based on methods developed in these theoretical situations.
All of this work will make detailed use of the classification and
properties of the finite simple groups. Some of these
algorithms depend on geometric methods. Other geometric projects will
be continued, including asymptotic investigations into planes,
designs and codes. There will be special emphases on nonassociative
division algebras and their planes (and in some cases, associated
codes), as well as on automorphism groups of symmetric designs.

The field of group theory is the mathematical theory of symmetry and
interacts with many other disciplines, for example computer science,
physics and chemistry outside of mathematics, number theory,
topology and geometry inside mathematics. The fundamental building
blocks of finite groups are the finite simple groups. One of the
outstanding mathematical results in recent decades is the
classification of the finite simple groups. A major portion of this
research proposal is aimed at using properties of these simple groups
in the computer-assisted study of arbitrary finite groups.
Group-theoretic algorithms are fundamental to the computer group
theory packages GAP and Magma, which are widely used in group theory
and combinatorics. Many aspects of the PI's research program have
led or will lead to significant improvements in this widely-available
software. Another portion of this proposal concerns the generation
of a finite group from a probabilistic standpoint, which also has
applications in computer science. A third portion of the proposal
concerns finite geometries, especially designs and codes. Designs
first arose in the design of statistical experiments, and have many
applications in other disciplines, including optics, coding theory
and computer algorithms. Error-correcting codes are a fundamental
engineering application of "pure" mathematics. This proposal will
fund graduate students who will study and work in these areas on the
border between mathematics and its applications.